Outreach and Educational Support for Ongoing Research at Columbia Glacier, Alaska

This project is processing still photographs and time-lapse photography of Alaska’s Columbia Glacier and making them available to science media and the public through a web site. Collaborators include research scientist W. Tad Pfeffer, National Geographic photographer James Balog, and Mark McCaffrey, a member of the Outreach Committee for the International Polar Year. The images and web site information are highlighting the contribution of glaciers with fast dynamic response to the rise of global sea level and to climate change. The project is conducting an evaluation of the effectiveness of the web site at informing the science media and the public.